Sulfur Cycling in the Marine Boundary Layer

The atmospheric sulfur cycle is controlled to a large extent by natural processes involving the release of biogenic sulfur gases into the atmospheric troposphere. An understanding of these processes is of importance to a number of global problems in atmospheric chemistry, including: the origin of SO2 and sulfate aerosol in remote regions; the impact of sulfur gases on tropospheric oxidant cycles; the contribution of biogenic sources to acid precipitation in pH sensitive ecosystems; and possible long-term climate controlling feedbacks between greenhouse gases and cloud condensation nuclei. This project is a field study of chemical cycling of sulfur through the boundary layer in marine and coastal regions. Ground-based measurements will be made of an array of gaseous and aerosol sulfur compounds at three sites: a laboratory on Virginia Key, Miami; the Florida Keys; and Barbardos. The compounds to be measured include as many as seven individual sulfurous compounds. The field measurements will be done in conjunction with other investigators measuring oxides of nitrogen and ozone. The primary goal of the project is to investigate the relative abundance and diurnal variations of the sulfur compounds at the field sites in order to critically test current theories regarding the nature of oceanic sulfur emissions and their atmospheric transformations.